SGER: Planning Grant Proposal: Identifying Grand Challenges in Distributed Systems

As part of a larger effort on defining a global research
infrastructure for CISE, this planning report, authored by a group of
leading researchers in distributed computer systems, identifies a
number of challenging road blocks in engineering and deploying
distributed applications on an Internet scale. The report identifies
promising technology opportunities, research directions, and
requirements for the network and application layer to remove the
roadblocks.